Angular Spectral Emittance of Microconfigured Surfaces

As the dimensions of integrated electronic structures continue to decrease, the point is being reached where newer and more innovative methods of heat transfer have to be considered. To accomplish this task will require a more fundamental understanding of the heat transfer process, particularly when the surface is microconfigured as is the case in electronic microcircuits. In this program, the radiant heat flow from a microconfigured surface of heavily doped silicon will be investigated. Because the size of the structures will be comparable to or smaller than the peak energy from an equivalent black body at that temperature, the radiant emission ought to be profoundly altered according to recent theoretical research. Part of the research will be to examine structures where alterations in the Stefan Boltzmann law should be observed according to this theoretical work.